Analysis of Equations in the Physical, Material, and Life Sciences

Abstract for NSF Proposal DMS-0305114
PI: Yuxi Zheng
(Title: Analysis of Equations in the Physical, Material, and Life Sciences)

Yuxi Zheng proposes to study the Euler equations modeling inviscid fluids,
Cahn-Hilliard and Ginzburg-Landau equations in phase-field modeling of alloys,
nonlinear variational wave equations modeling liquid crystals,
Schrodinger-Poisson and Vlasov-Poisson equations in plasma physics,
and the protein folding problem in molecular biology. His objectives are
to gain both better understanding and simplifications of complexity, which
include complexity reduction for the protein folding problem, effect of
solutes on the enhancement of strength of alloys, and mechanism of singularity
formation in air, water, and liquid crystals. The methods include hard, soft,
and asymptotic analysis, numerical computation, and techniques of mathematical
modeling. The mathematical issues proposed to study are all fundamental for
the understanding of the respective subject areas. For instance, the search
for a measurement of distance between three points in the protein folding
problem is to reduce drastically the huge number of local minima of the energy
potential and thus bring the complexity to a comprehensible level. The issues
proposed in the phase-field model of alloys is to provide the quantitative as
well as qualitative foundation for manipulating the effect of solutes in
strengthening the alloys. The theoretical issue regarding the limit from
Schrodinger-Poisson to Vlasov-Poisson equations is a consistency issue of
great importance in the overall understanding of matter and mathematical
modeling. The investigation of these mathematical issues will
(1) yield new understanding regarding alloys, liquid, gases, plasmas,
liquid crystals, and bio-materials, which are critical for the advancement
of many engineering sciences such as protein-engineering, drug designing,
solid solution hardening, aerospace engineering, robot designing, energy
efficient devices, etc.; (2) provide advanced training for graduate students
or postdoctoral researchers; (3) enhance collaboration and cross training
of faculties between mathematics, material research, physics, biochemistry,
molecular biology, and other life sciences, thereby establish a foundation
for training students in this broad area while promoting research.

Yuxi Zheng proposes to study some applied mathematical problems in fluid
dynamics (which includes the motion of air and water), modeling of alloys,
plasma physics, protein folding in molecular biology, and liquid crystal
physics in material science. Scientists and engineers have used mathematical
equations, called partial differential equations, to model motions or
evolution. The turbulent nature and/or defects in the materials and the
complexity of life show up in the form of singularities and instabilities
in the solutions of the equations or in the complexity of the equations
themselves. In the protein folding problem, the equations themselves need
to be mathematically simplified for a computer to do real time numerical
simulation. In all the other cases, where the equations are quite simple,
it is these singularities and instabilities that often spoil accurate
numerical computations of the solutions. Yuxi Zheng plans to use the state
of the art analytical tools to study the structures of the singular solutions.
In the case of a compressible gas such as air, for example, Yuxi Zheng plans
to isolate typical singularities (hurricanes, tornadoes, shocks, etc.)
and investigate their individual structures. The result of the investigation
will be a clear understanding of the worst possible solutions, or drastic
reduction of complexity, and thereby quantify our knowledge of the physics
and offer guidance in high-performance numerical computations of general
solutions. The success here will influence scientific areas such as
alloys, liquid, gases, plasmas, liquid crystals, and bio-materials, and
provide critical knowledge for the advancement of many engineering sciences
such as protein-engineering, drug designing, solid solution hardening,
aerospace engineering, robot designing, energy efficient devices, etc.
In addition, the success here will provide advanced training for graduate
students and postdoctoral researchers and enhance collaboration and cross
training of faculties between mathematics, material research, physics,
biochemistry, molecular biology, and other life sciences, thereby establish a
foundation for training students in this broad area while promoting research.